Radon-like Transforms: Possible Applications to Partial Differential Equations and Inverse Problems

ABSTRACT:

In my thesis and in extensions I have made over the past year and a half, I
have studied variants of Radon transforms known as singular Radon
transforms, generalizing earlier work of Christ, Nagel, Stein and Wainger.
In my proposed research, I intend to extend my methods to include a broader
class of operators, which would include fractional and more traditional smooth
Radon transforms, proving boundedness properties on Sobolev and L^p
spaces. I also intend to research possible applications to partial differential
equations; there is a similarity between concepts that I use and results of
Fefferman and Phong in subelliptic PDE theory that might lead to interesting
results in that direction. Further, I would like to generalize my work in more
applied directions. For example, tomography, an important tool in medical
imaging and related areas, requires the inversion of Radon transforms. Due to
the close relation between PDE's and inverse problems, I hope to be able to
apply my methods to help solve inverse problems such as those in tomography.

In recent work, I have studied mathematical objects known as singular Radon
transforms. They are variants of standard Radon transforms, which have
important applications in both mathematics as well as the sciences. For
example, in medical imaging one frequently uses X-ray tomography to generate
an image of an internal organ that one can not easily analyze through other
imaging techniques. X-ray tomography involves inverting a Radon transform
operator, in other words, the determination of an image from the Radon
transform of this image. In my proposed research, in addition to extending my
earlier results to strictly mathematical questions, I hope to be able to
extend my research to help tackle more applied problems such as these. Ideas
from disparate areas of mathematics and science might be needed.